Formal Power Series and Algebraic Combinatorics (Vadstena, 2003): An International Combinatorics Conference

Principal Investigator: Art Duval
Proposal Number: DMS- 0301311
Institution: U of Texas El Paso

Abstract
Formal Power Series and Algebraic Combinatorics (Vadstena, 2003): An International Combinatorics Conference

This award funds young mathematicians (graduate students and recent Ph.D.'s) from the United States to travel to the fifteenth annual Formal Power Series and Algebraic Combinatorics (FPSAC) international conference, being hosted this year by The University of Linkoping, (Sweden), June 23-27, 2003.

This continuing series of conferences bring together researchers from various areas of combinatorics and theoretical computer science and links them with leading scientists from allied disciplines in pure mathematics, applied mathematics, bioinformatics, and physics. The focus of the 2003 conference is on algebraic and enumerative
combinatorics, again with emphasis on interdisciplinary links to allied fields, including this year, for the first time, biology and bioinformatics.